CAREER: Fast Foveation: Bringing Active Vision into the Camera

The prevalence of foveation, and the wide variety of it in the living world, makes it very clear that this is an effective visual design strategy. This project is about copying foveation, by building fast cameras that can optically concentrate sensing resources onto areas of interest in the world around them. Doing this can improve sensing performance for computer vision-enabled intelligent systems. On resource-constrained platforms, such as robots or spacecraft, adaptively sensing only on areas of interest improves efficiency. This project will create capability that enables a variety of sensing applications. Throughout the project timeline, research outcomes will be integrated in the investigator's hardware/software bridging courses, focused on fundamental procedures such as camera calibration. In addition, a program called LensLearning will be started, to spread foveating camera concepts beyond the lab. LensLearning includes impacting high-school students through special University of Florida programs with hands-on projects. It also enables the training of one high-school student and one undergraduate senior every summer through this project's timeline, by working with the University of Florida's associated programs, with the goal of giving opportunities to underrepresented minorities in foveated camera research.

Although the idea of artificial foveation has been explored with slow, mechanical means of motion, in this project the foveating cameras and accompanying algorithms will be much faster because they exploit newly available, next generation micro-mechanical optics that can quickly and adaptively change the camera resolution. The first phase of this project involves building the fast foveating camera test-bed and characterizing the fundamental limits of fast foveation for dynamic scenes through an optical model that considers modulation speed, camera field-of-view, noise, motion and long-range effects. The second phase involves demonstrating tracking advantages in dynamic scenes with variants of the fast foveation setup, such as co-located systems and arrays of foveating cameras. Evaluations in simulation will be done using widely available datasets by comparing processing power and imaging efficiency. Real evaluation will also be done on the test bed, resulting in the release of a novel foveated dataset of dynamic scenes of everyday objects. In the last phase, the developed systems and algorithms will be used to demonstrate extreme imaging applications by combining both large baselines and co-located multimodal systems, showing capabilities such as glasses-free eye-tracking, imaging in dark environments and fast face imaging for robotics.